Principles for Integrating Part Setup Planning and Workholding in Automated Manufacturing

The broad theme of this research is the creation of intelligent, dexterous, self-sustaining machine tools for the small-batch manufacturing industry. With previous National Science Foundation support, the Principal Investigator has developed an expert system that plans the setup processes for rectangular-type parts in a parallel-sided vise on a three-axis Computer Numerical Control (CNC) milling machine. At the same time, clamping and fixturing methods have been systematically studied and an automated fixturing device has been made and used. The specific work consists of: (1) broadening the expert system planning software to encompass more complex part shapes that will require more setup steps, the use of toe-clamps and the possible use of more complex fixtures, (2) combining this expert system approach with a more solid mechanics approach to stable fixturing that will come more into play as our parts increase in complexity away from the simple rectangular parts held in a parallel-sided vise, and (3) the construction of prototype fixtures that can handle more complex part types. In this research, the software that integrates the machine tool planning and clamping functions is referred to as the Unified Machining Planner; the programmable hardware that will be developed is referred to as the Flexible Clamping System.